Mathematical Sciences: Computations and Neural Systems

The original abstract (DMS-8800323) is still valid. This PI transfered from the University of California at San Diego to the California Institute of Technology.